Promoting Spatial Thinking with Web-based Geospatial Technologies

This exploratory project will develop STEM spatial thinking skills of middle school learners. The project will equip middle school teachers with well-designed earth science investigations and support materials to promote spatial thinking. This project will design, develop, and test curriculum materials that use Web Geospatial Information Systems (GIS) that includes advanced visualization and geospatial analysis capabilities. The project will enable researchers to investigate how Web GIS can best be used to promote both spatial thinking and earth science learning goals with diverse learners. The project will also analyze how educative curriculum materials can prepare teachers to implement Web-based geospatial science pedagogical approaches to teaching, and document the impacts on student learning. Partners in the project include ESRI, the NSF supported GeoTech Center, and national education organizations.

The curriculum materials will be developed using frameworks and design principles for spatial learning activities that incorporate an innovative spatial learning design model and the use of educative curriculum materials that have demonstrably promoted learning at the middle school level. The curricular modules will be readily adaptable for incorporation into existing middle school science curricula. The spatial learning design model and the creation of a new Web GIS will enable students to develop spatial thinking skills that are an enhancement to learning earth science content. The project addresses a deficiency in existing curricular materials in the earth sciences by taking advantage of newly available Web GIS applications and tools. The project will provide research-based science learning materials designed for diverse middle school learners to promote spatial thinking. In addition, earth science literacy will be enabled through the use of design principles and frameworks that include robust educative curriculum materials to promote not only student learning, but teacher learning as well. The learning experiences designed for students will promote strong connections between national to global earth science issues while concurrently instilling spatial thinking skills. The work will be enhanced through a design partnership model for the development of all curriculum materials that includes science educators, scientists, instructional designers, and classroom teachers. The project will contribute to educational infrastructure by creating a series of assessment instruments designed to measure the effectiveness of Web-based geospatial learning and inquiry instruction on the development of earth sciences content knowledge and spatial thinking skills.

The project will advance knowledge in important and significant ways to help the science education community understand how students develop spatial thinking skills that are essential to learning science and other disciplines with new Web GIS applications. The project will enable researchers to examine how Web-based geospatial technologies can best be used in a middle school science curriculum to promote learning with diverse learners. It will also elucidate how educative curriculum materials and other professional development experiences can be created to prepare teachers to implement geospatial science pedagogical approaches. Further, the research conducted will reveal how Web GIS can be used effectively to impact student learning outcomes. The focus on diverse learners ensures that this project will impact a great number of students who are traditionally underrepresented in STEM disciplines and careers. The project will serve the education community more broadly and save other groups and commercial publishers from the time and expense of creating a Web GIS with dynamic applications such as Javascript APIs from scratch.